Multinuclear NMR Spectroscopy for Teaching and Student Research

The project will upgrade and expand the organic, inorganic, and biochemistry courses and student research projects at Gustavus Adolphus College through the purchase of a high-field multinuclear nuclear magnetic resonance (NMR) spectrometer. The instrument will be used in the introductory organic courses for identification and structural elucidation of products via 1H and 13C NMR spectroscopy. The advanced organic course will be modified to include synthesis experiments which will make use of 13C and two-dimensional NMR spectroscopy, and to evaluate the course of enantioselective reactions. The instrument will be used in biochemistry courses to illustrate aspects of protein structure and to measure rates of metabolic processes. The introductory and advanced inorganic courses will use multinuclear variable temperature NMR spectroscopy for characterization of products and the measurement of activation barriers.